Plates & Plumes: A Celebration of the Contributions of W. Jason Morgan

The PIs propose to hold a symposium to be called "Plates & Plumes: A Celebration of the Contributions of W. Jason Morgan to the Ongoing Revolution in Earth Dynamics" at the Department of Geosciences at Princeton University, on October 10 and 11, 2003. The symposium honors Jason Morgan, who is retiring from his position at Princeton this year, and will focus on the active research frontiers that continue to expand from the nucleus of Jason Morgan's contributions. The are plans for about 200 participants, including invited speakers and volunteered poster contributions from all symposium participants.